Synchrotron Radiation Center (SRC)

The Synchrotron Radiation Center (SRC) at the University of Wisconsin-Madison, is a national facility for the utilization of ultra-violet and soft x-ray synchrotron radiation in scientific investigations. The studies carried out at SRC impact a number of disciplines including condensed matter physics, atomic and molecular physics, chemistry, and materials science and engineering, and other disciplines. SRC is a user oriented facility which accepts proposals from all qualified investigators. It supports a community of 388 users from 58 university, national, and industrial laboratories. There are 18 beamlines in operation now, six are under development, and five more are proposed. Included are two dedicated beamlines in operation, one under development and two more allocated for the Center for X-ray Lithography. An x-ray microscope using an undulator as its source is under construction. Research performed at SRC has proved extremely productive, with recent publications corresponding to 15% of the world-wide total for the same period. The responsiveness of SRC and its users to new developments is shown by the 25 recent papers on high-temperature superconductors, the first submitted in April 1987. The addition of a soft x-ray beamline, and the improvement of the 1 GeV storage ring operation for higher currents are planned. The ring improvements will provide more high energy radiation which are especially important for the x-ray lithography program.